Coupled Overflow - Source Region Models

It is proposed to continue a theoretical investigation of hydraulically controlled flows, i.e., flow over a sill, for cases where the forcing of the upstream basin rather than sill depth controls the transport of deep water.